Computer Science, Engineering, and Mathematics Scholarships Program

Computer Science (31), Mathematical Sciences (21), Computer Engineering (32), Engineering Technology (58) This Computer Science, Engineering, and Mathematics, Scholarship (CSEMS) Program is providing scholarships and an infrastructure that will enable academically talented, financially disadvantaged students to maintain full-time enrollment and achieve degree completion in the fields of engineering, engineering technology, mathematics, computer science, and computer technology. As the project administrator, the university's existing SUMS Institute is coordinating efforts between the Department of Mathematics and the College of Engineering and Applied Sciences to: 1) recruit and select program students; 2) provide activities designed to support the students through degree achievement; and 3) prepare the students for future employment and/or higher education. The project expects to increase the enrollment and the graduation of students in science, engineering, mathematics, and other technical fields from groups that have traditionally been underrepresented. The CSEMS Program is expanding and enhancing the continuum of services available to students of diverse gender, ethnic, social, and economic backgrounds, and is evidence of the university's commitment to providing a high quality education for all students.